Dynamical Study of Almost Periodic Systems with Applications

9501412 Yi This project is focused on problems in dynamical systems and differential equations originating in science and engineering problems. Its primary goal will be to study almost periodical phenomena and complicated dynamics arising in ordinary and parabolic type of differential equations. Particular attention shall be given to problems of perturbation of invariant tori, quasi-periodic bifurcations, dynamics of almost periodical parabolic equations such as asymptotical behavior of solutions, structure of invariant sets and existence of a global attractor, etc. Techniques from topological dynamics and nonlinear analysis as well as those found by the PI in his previous works shall be employed to the current studies. %%% This project is focused on problems in dynamical systems originating in science and engineering problems. Its primary goal will be to study almost periodical phenomena and complicated dynamamics arising in fluid as well as biological models. New techniques found by the PI in his previous works shall be employed to the current studies. ***